Travel to Attend: International Conference on Solar and Wind Energy Applications; Beijing, China; August 3-7, 1985

Travel support is being provided to the principal investigator to attend the upcoming International Conference on Solar and Wind Energy Application, which is scheduled to be held in China from August 3-7, 1985. He has been invited to address a plenary session of the conference on matters dealing with solar energy. In addition to the Chinese Aerodymanics Research Society, other sponsors of the Conference are: the Chinese Solar Society; the American Solar Energy Society; and the American Wind Energy Society.